Acquisition of an Automated Powder X-Ray Diffraction System

9708272 Guidotti This grant provides $70,295 as one-half support of the costs of acquiring a state-of-the-art powder X-ray diffractometer (XRD) that will be housed in a newly constructed Global Sciences building on the Orono campus of the University of Maine. This acquisition will allow these PI's to continue their internationally recognized research programs in petrologic mineralogy including studies of the phase equilibria of solid solutions in metamorphic rocks and borosilicates. The characterization of both structural properties and mineralogic identification of unknowns is fundamental to these researchers and the establishment of a modern XRD facility at the University of Maine will benefit a number of other faculty both within the Department of Geological Sciences and within the departments of Physics and Engineering. ***